Einstein

EINSTEIN is a series of three prime time television programs to be shown nationally on the Public Broadcasting Service (PBS). The series will present a scientific biography of Albert Einstein. The series will treat the life of Albert Einstein on several levels. The central narative thread will trace the development and impact of Einstein's work in physics. The three programs will examine Einstein's impact beyond physics -- as a muse for the arts; a dissident voice in politics; a moral sensibility; ultimately as the greatest public symbol of scientific accomplishment. With original texts (including newly identified documents from the Einstein archives), historical footage, interviews, documentary sequences, the most sophisticated computer animation available, and other techniques as appropriate, EINSTEIN will present to its audience a unique picture of the role of Albert Einstein in the making of the modern world. Beyond its broadcast in 1992, the series also will receive wide educational distribution in secondary schools and colleges and a large foreign audience.